Paleoenvironments and Cenozoic Evolution of Tropical American Vegetation: Guatemala, Jamaica and Costa Rica

The Isthmus of Panama was uplifted several million years ago, leading to isolation of the eastern Pacific and western Caribbean marine realms, and interchange between the terrestrial biotas of North and South America. Dr. Alan Graham has been actively sampling and interpreting deposits of fossil pollen from Central America, with the goal of interpreting the climatic and vegetational history of the region before and during the uplift of the Ishthmus. He now proposes to extend his earlier sampling of Miocene strata in Panama to both older and younger formations in Jamaica, Guatemala, and Costa Rica. The proposed research will expand greatly our understanding of this critical episode in earth history. These pollen records will lead to better reconstructions of the climatic and ecological history of the region, and will shed new light on how and why certain plant and animal groups migrated across the Ishthmus while others did not. Dr. Graham will continue toward his eventual goal of understanding the evolutionary history of the biotic communities we now see in the tropics of the New World.